WebBook: A Prototype for the Next Generation of Interactive Computer Science Learning Resources

Computer Science (31)

The WebBook project demonstrates the feasibility of using the Web to deliver next-generation, inquiry-based, active learning educational resources. A prototype "hypertextbook" blending standard text, graphics, interactive animations of key concepts, voice, and sound into a seamless whole is developed and formally evaluated. Standard Web-site creation technologies are used to ensure that the prototype can be used with any of the usual Web browsers on all platforms, making it accessible to anyone in the world without the need to purchase special software or hardware. The prototype encompasses the basic topics in theory of computing. As key concepts are encountered, animations are presented in seamless fashion that allow the learner to explore the concept while controlling parameters that drive the animation. The prototype is designed to serve as a general model for the development of hypertextbooks, inspiring the creation of similar resources in other science and engineering disciplines.